2010 Conference: Environmental Sciences: Water - to be held June 20-25, 2010

0964591
Ryan Gray

This award is in partial support of the 2010 Gordon Research Conference (GRC) entitled "2010 Environmental Sciences: Water," to be held June 20-25, 2010. The agenda encompasses topics central to environmental engineering and sustainability, including water reuse, fate of pollutants in aqueous environments, emerging pathogens, water quality, and green chemistry and engineering. The conference will advance discovery while promoting teaching, training, and learning by offering a platform for graduate students and postdoctoral researchers to present their research and participate fully in the conference activities. The conference promotes broad participation from a diverse background, both through speaker selection and special GRC funding mechanisms that target underrepresented groups.